Isotope Ratio Mass Spectrometers for Ecological Research

An isotope ratio mass spectrometer will be purchased for use in ecological and environmental studies. Among the problems and systems to be probed are: sensitivity to change in arid land ecosystems; water source and humidity information and tree rings; carbon-13 and oxygen-l8 in modem tooth enamel; the history of atmospheric carbon dioxide; and carbon isotope ratio variation and stress tolerance in soybean.